Support for the 2013 SnowPAC Workshop

Funds are provided for participant support for the 4th annual Snowbird Workshop on Particle Astrophysics, Astronomy, and Cosmology (SnowPAC 2013), organized by the Department of Physics and Astronomy of The University of Utah. The award will support participation (via lodging cost subsidy) by 20 individuals who would otherwise be unable to attend the meeting, with a particular emphasis on broadening participation by junior researchers and groups traditionally underrepresented in astronomy and astrophysics.

The SnowPAC workshop is an international meeting that reviews recent developments in particle astrophysics, dark matter, dark energy, astronomy, and cosmology. It seeks to establish new connections between these disciplines and establish new collaborative ties between individuals working in these research areas.

The main SnowPAC 2013 conference will be a topical conference on "Black Hole Fingerprints: Dynamics, Disruptions & Demographics." This conference will combine an exploration of our current knowledge of black hole demographics with a discussion of the future promise of using tidal disruption events to expand our knowledge of the populations of black holes in galaxies. This conference will be followed by a smaller SnowDARK 2013 workshop focusing on non-WIMP dark matter candidates.